Doctoral Dissertation Improvement Grant: Communal Feasting and the Social Order at Late Classic El Coyote, Northwestern Honduras

Under the direction of Dr. Ben Nelson, Mr. Christian Wells will collect data
for his doctoral dissertation. He will continue ongoing archaeological research
at the prehispanic site of El Coyote, located in the Cacaulapa Valley of
northwestern Honduras. This research will investigate the relationship between
community feasting and the political organization of the polity that formed and
collapsed between the seventh and tenth centuries AD. Archaeologists wish to
understand the processes that integrate and differentiate individuals in
ancient communities, with the greater goal of reconstructing past systems of
government and their effects on the growth and change of societies. Mr. Wells'
previous excavations in the main civic-ceremonial plaza at the site have
revealed abundant evidence for food production and consumption on a large
scale, suggesting that communal feasts were a central practice in the rulership
of El Coyote. Such events would have served as a mechanism for polity
integration, as well as a context in which exotic items were publicly displayed
to enhance the social prestige and political authority of local leaders. With
NSF support, Mr. Wells' doctoral dissertation research will examine the
organization of feasting in the plaza, including what material culture was
employed, where food consumption took place in relation to the temples that
delimit the plaza, and which social segments of the polity participated. His
research will incorporate archaeological excavation of the plaza and adjacent
buildings, as well as trash middens that accumulated on the margins of the
plaza. In addition, he will chemically characterize soil samples from the plaza
to study the distribution of phosphorous and heavy metals, which will indicate
the locations of activity areas. His research will also examine the composition
of ceramic vessel remains from the trash areas in order to illuminate the
different social groups that participated in plaza-oriented activities.
Archaeologists are interested in the practice of feasting and the social
relations that are reproduced during feasts. The examination of material
culture and soil chemistry at El Coyote is a direct method for the study of
this phenomenon, and will yield new information on the organization of feasting
in ancient complex societies and the degree to which this practice was involved
in the political and economic administration of El Coyote. In addition, the
research will enhance our knowledge of the material signatures of feasting in
the archaeological record and will assist in training a promising young
scientist.